Equipment to Improve Undergraduate Instruction in Cellular and Developmental Biology.

Use of the new computer-interfaced spectrographic equipment provided through this project is improving laboratory instruction in Developmental and Cellular Biology courses. The students in this historically Black institution are being exposed to current state-of- the-art equipment in laboratory studies of functional aspects of living systems. Although the primary emphasis is on Cellular and Developmental Biology, instruction in Biochemistry, Human Physiology, Human Anatomy, and special projects also benefit greatly from the project. One of the most important elements of the project is its introduction of modern data collection and analysis techniques to the Department's curriculum.